Collaborative Research: NSFGEO-NERC proposal: Towards documentation of the system-level behavior of the Pacific-North America plate boundary fault network in southern California

Scientists have long tried to understand how, why and where geological faults slip when generating damaging earthquakes. But the ability to accurately forecast the near-future likelihood of earthquake recurrence has remained elusive. This project will tackle this problem in southern California by documenting how the three main faults that form the San Andreas system that may speed up and slow down as they “trade off” slip through time during clusters of large earthquakes that are separated by long periods of seismic inactivity. The details of these patterns of earthquake occurrence will provide critically important information on how faults slip through time in large earthquakes. In turn, these results will have major implications for learning how to more accurately forecast the near-future likelihood of recurrence of damaging earthquakes on faults throughout the American West which may have high-societal impact.

The goal of this collaborative project is to improve the ability to more accurately forecast the near-future likelihood of earthquake recurrence by advancing understanding of the collective behavior of regional fault networks. This project will study the importance of emergent phenomena such as earthquake clusters and strain transients that may not be expected in our current understanding of earthquake physics and that are not accounted for in current seismic hazard assessment strategies. The researchers will address these critically important issues by documenting a detailed incremental fault slip rate record for the three major faults in southern California, the San Andreas, San Jacinto, and Elsinore faults. These three faults collectively accommodate 75-80% of the total relative North America-Pacific relative plate motion. The data collected will provide key constraints on the system-level behavior of the plate-boundary fault network in this region. These data will facilitate assessment of the degree to which these faults trade off slip in time and space to accommodate the overall plate-boundary rate. These results will thus provide critically important constraints on understanding both the physics of fault slip to generate large earthquakes, as well as key information needed to more accurately assess the probability of near-future earthquake occurrence as part of probabilistic seismic hazard assessments (PSHA). The broader impacts fall into three main categories: improving PSHA both nationwide and globally, education and mentoring of students at all levels, from elementary school through post-doc, and dissemination of our results to target audiences. This research will provide the basis for developing new PSHA strategies, as well as basic constraints on studies of fault mechanics and geodynamics, advancing our understanding of how faults work together to release energy during damaging, large-magnitude earthquakes on the faults that comprise the plate-boundary fault system in densely populated southern California. This collaborative project is funded jointly by NSF to US universities and by NERC to University of Sheffield in the United Kingdom.